REU: Research Experiences in Geometry and Topology

The Department of Mathematics at Tulane University is hosting 8 weeks long summer research program for undergraduates;summers of 2003-2005. The research area includes geometry and topology.There will be 12 students working with 3 Department of Mathematics members(Prof. M.Kalka,Prof. S.Kwasik and Prof. D.Yang) . Topics of the research will be adapted to students background,interest and preparation. Students will receive a stipend,housing in the dormitories of Tulane University and travel assistance